Collaborative Research: Understanding and Precision Control of Nanoscale Interactions in Surface Patterned Nanoparticles

Nanoscale engineering aims to build materials from the bottom up. This approach can be used to build structures that cannot be made using standard top-down manufacturing. This project will develop computational and experimental methods to control the interactions among nanoparticles in prescribed ways. It will coat nanoparticles with polymers that are designed to promote interactions among nanoparticles in preferred directions. It will turn the nanoparticles into useful building blocks to make nanoscale structures. The project will establish rules for how polymers form patters on nanoparticle surfaces. It will study how patterned nanoparticles interact. Then, it will use patterned particles to create functional materials. The work will target structures designed for nanocatalysis and the detection of organic pollutants. Overall, the project will produce design rules for new materials, targeted delivery systems, catalysis, and microelectronics. The research team will develop exhibits at local museums, family-centric STEM events, and after school programs. It will engage high school students to participate in the research. Activities will introduce students to networks of mentors that are critical for STEM workforce development. Research findings will also be incorporated into new coursework to train the next generation of researchers.

Creating bio-mimetic nanoscale building blocks imbued with complex nanoscale interactions remains a holy grail in materials design. This project will combine theory, simulation, and experiments to characterize how functionalization of ligands onto nanoparticles can provide a powerful handle for programing emergent directional interactions at the nanoscale. By harnessing the dynamic nature intrinsic to ligand physisorption, the project will elucidate synthetically viable parameters capable of producing targeted and spatially-domained ligand surface distributions on nanoscale objects. Development of such nanoparticles with precision nanoscale interaction control will enable their organization into functional structures that are of immediate interest for applications across: 1) advanced filtration systems for clean water generation and/or heavy metal recovery, 2) catalysts for pollutant degradation, and 3) responsive sensors for environmental monitoring. The project will focus on three areas. First, research will focus on identifying the interfacial nanoscale driving forces underpinning regioselective ligand patterning on surfaces. This thrust will provide mechanistic understanding of how to target ligand configuration that can break the symmetry of the underlying nanoparticle, thereby producing directionally specific interactions. Second, the research will characterize how such symmetry breakages at the particle-level influence their hierarchical spatial/orientational ordering, particular at interfaces. This thrust will reveal how precision control of nanoscale interactions can influence emergent interfacial features, establishing structure-property relationships that are critical for materials engineering. Third, the research will leverage established structure-property behaviors to design chiral and porous assemblies for nanocatalyst designs as well as optimize mesoscale surface patterning for organic pollutant detection. Project outcomes will provide fundamental understanding and experimentally verified theoretical framework for reprogramming nanoscale interactions via controlled ligand patterning, with far-reaching applications across integrated metamaterials, targeted delivery, catalysis, and microelectronics. The project’s findings will be widely disseminated through educational and outreach programs spanning K-12, undergraduate, and graduate levels.